International Travel Grant to Explore U.S-Korea Cooperative Exchange in Structural/Mechanics/Natural Hazards/Construc- tion Engineering and Materials Research

This is an international travel grant to support the Principal Investigator's visit to the Department of Civil Engineering, Korea Advanced Institute of Science and Technology in Seoul, where he will participate in two seminars arranged by Professor Chang-Koon Choi, Professor of Civil Engineering. While in Korea, Prof. Ramey will join Prof. D. Parsons in visits to Korean Research Institutes under arrangements made by Prof. Choi. The proposed activities will enable Prof. Ramey to understand: a) the differences in earthquake resistant design approaches in Korea as contrasted with U.S. practice, b) exchange information on fiber reinforced concrete in seismic joints and computer aided engineering, and c) current research efforts being undertaken in various research institutes and organized research units in Korea. This effort will develop research cooperation between U.S. and Korea in the areas of advanced technologies involving seismic design, composite materials and computer engineering in connection with structural and architectural systems.